A Laser Probe for the Dynamic Measurement of Vorticity

Abstract
CTS-0002658
V. Otugen, Polytechnic University of NY

Dr. Otugen proposes to extend the technique of measuring velocity gradients that he developed earlier to develop a probe, which can measure one component of the vorticity directly. The technique is laser based and non-intrusive. It is proposed that by mixing scattered light from two closely spaced volumes, the desired velocity gradients can be determined to obtain the vorticity component. Once the probe is developed, it will be applied to study the effect of streamline curvature on an equilibrium turbulent boundary layer.